Mathematical Models of Molecular Motors

Oster 9626104 The investigator and his colleague construct mathematical models to describe three important classes of protein molecular motors. (1) 'Linear' motors driven by nucleotide hydrolysis, including (i) the kinesin and myosin superfamily which move along microtubules and actin filaments, respectively, and (ii) HSP70, which drives the translocation of proteins across intracellular membranes; (ii) RNA and DNA polymerase, which move along the DNA double helix. (2) 'Rotary' motors driven by electrochemical gradients, including (i) ATP synthase, the mechanochemical engine that synthesizes ATP, and (ii) the bacterial flagellar motor, which drives the motion of many prokaryotic organisms. (3) Motors driven by polymerization free energy, including the microtubule depolymerization process that moves chromosomes during anaphase mitosis, and the polymerization motors which drive the motion of certain pathogenic bacteria and viruses, such as Listeria and Vaccinia. The approach in each case is to begin by formulating analytical stochastic models consisting of Langevin mechanical equations or Fokker-Planck diffusion equations that describe the mechanochemical and statistical behavior of the molecular machinery. These models then are analyzed mathematically where possible and by numerical simulation in all cases. The mean mechanical properties of these protein motors are derived, such as force-velocity curves, along with their stochastic properties such as trajectory variances. Results are presented in a visual format that facilitates comprehension by biologists and comparison with experimental data. The most striking feature of biological cells, and indeed the hallmark of life itself, is their constant motion. These motions are of two kinds: those that move the cell from one place to another, and those that move vital material from one place to another within the cell. Both kinds of motions are driven by specialized protein molecules that function as ti ny robotic motors, powered by chemical energy. The world in which these protein machines operate is dominated by Brownian motion, which gives their movements a statistical character. Although these molecular machines operate on a length scale of nanometers and a force scale of piconewtons, they are absolutely essential to the life of the cell. Recent advances in instrumentation have made it possible to measure the mechanical properties of individual protein motors, and recent advances in high-performance computing have enabled their simulation in realistic detail, including the effects of thermal fluctuations. Taken together, these advances provide an unprecedented opportunity to deduce how biomolecular motors work. This is done through the formulation of mathematical models, and through the careful comparison of model predictions with experimental data.